The Functions of the Stress 70 Molecular Chaperones in Spinach

9317540 Guy The various physical components of the natural environment are rarely optimal with respect to growth and development over the life cycle of any given organism. Because terrestrial environments are dynamic, most plants have evolved mechanisms to cope with marginally unfavorable conditions that may otherwise be deleterious. While physically different environmental conditions may injure plants in quite unique ways, certain cellular consequences of injury may be common to what would be viewed as rather divergent environmental stresses. The work outlined in this proposal continues to focus attention on the fundamental role of a class of molecular chaperones, the stress 70 family, in the basic functioning of the plant cell and in the organism as a whole during normal growth and development, as well as when subjected to suboptimal and deleterious environmental condition. It has been demonstrated that one of the responses of spinach to low nonfreezing temperture exposure involves an increased level of expression for one or more members of the heat shock 70 family. The objectives of the research are to: 1, determine the expression responses for all members of this family to both short and long term exposure to low temperature; 2, define the expression patterns for all the members of the family in response to the complement of environmental parameters of significance to plants; 3, examine the phenotypic consequences resulting from over-and under-expression in transgenic plants; and 4, continue the biochemical analyses of the purified proteins with respect to peptide binding and its role in protein assembly. Together the aggregate of this work will be to not only examine the molecular chaperone function of HSP/C70s, but to test the hypothesis that this family of proteins plays an important role in protein assembly and disassembly in plants at low temperatures. ***